Development of Low Dark Current, High Quantum Efficiency 10 Micro Meters Arrays under the GOALI Program

Abstract This proposal capitalizes on the on-going working relationship between the infrared astronomy group at the University of Rochester and the infrared array detector group at the Rockwell International Science Center in the development of long-wave infrared (LWIR) HgCdTe focal plane arrays for astronomy. Rockwell has developed LWIR HgCdTe arrays under DoD contracts that are operated with large background irradiance. Since the dark current need only be much less than the background induced photocurrent these DoD arrays do not have very stringent dark current requirements, and are operated at high temperatures (80K). Rockwell has developed new Buried Planar Heterojunction (BPH) HgCdTe devices. Low dark current, high sensitivity 10 micrometer wavelength arrays constructed by this technology are promising possibilities at low temperatures (25K - 30K). However, there are a variety of technical hurdles to overcome. At these temperatures generation-recombination (G- R) dark current will dominate diffusion dark current (prevalent at 80K), and G-R current drops precipitously with temperature. However, at the lower temperatures there can be tunneling dark current in addition, and a decline in quantum efficiency. This effort will seek to produce devices that do not exhibit tunneling and which have excellent quantum efficiency. HgCdTe is expected to have wide applicability to astronomy and other applications.